PI Conference for NSF Projects in Technology Education, Washington, DC, November 18-19, 1998

The goal of the PI Conference for NSF Projects Related to Technology Education is to create and enhance linkages among Advanced Technological Education (ATE), Instructional Materials Development (IMD) and Teacher Enhancement (TE) programs. A conference will be held in Washington, D.C. on November 18 and 19, 1998. Approximately 40 principal investigators will have the opportunity to "showcase" their projects. Selected leaders from the ATE and technology education communities will be invited to participate as well, NSF program officers will present on "Relationships Among ATE, IMD and TE Projects." Panels of three principal investigators will address issues such as: "Developing standards-based curricula," "Strategies for enhancing the impact of projects," and, "Working with publishers." A rapporteur will listen throughout the conference and make reflective comments concerning the issues addressed. He will also make recommendations for further research. Based on the rapporteur's report, panelist's one-page comments and reports, and the conference evaluation a manuscript will be prepared for submission to a national journal.